Radial Velocities of Stars in the Georgia State University (GSU) Speckle Program

Observations of binary stars through the Georgia State speckle interferometry program can produce accurate binary orbits in angular units. Furenlid will make matching radial-velocity observations to deduce accurate orbits, distances, luminosities, and masses of the binary stars. The observations are to be made at the Cananea Observatory, located in Mexico, south of Tucson, with a new and specially designed spectrograph. Some of the most basic information in astronomy, about distances and masses of stars, is derived from observations of binary stars. Furenlid will take spectra and measure accurate radial velocities of binary stars whose positions relative to each other have already been observed with high accuracy, using a technique recently implemented by co-investigator McAlister. The two sets of data together will yield accurate basic stellar information not obtainable by any other means.